Psychological Science in the Public Interest: Increasing Public Understanding of Behavioral and Social Science Research

The science of psychology has produced a large body of outstanding research on behavioral and social phenomena. In terms of public awareness, however, the potential of psychology may be among the best kept secrets in science, among the public, policymakers, and other scientists. The American Psychological Society is launching a new journal to address this problem. "Psychological Science in the Public Interest (PSPI)" will present the best scientific evidence on issues of public interest. This grant will broaden the dissemination of PSPI reports to the public.